Travel Grant to 5th International PhD Symposium in Civil Engineering; June 17-19, 2004; Delft, The Netherlands

Travel Grant to 5th International PhD Symposium in Civil Engineering
TU Delft, The Netherlands ,CMS project 0353300

PI: Reginald Des Roches, GA Tech

This proposal is to provide travel fellowships for approximately 8-10 graduate students to attend
the 5th International PhD Symposium in Civil Engineering, in Delft, The Netherlands, in June,
2004. The symposium is the 5th, in a sequence of successful symposiums that began in 1996 in
Budapest. The symposium is a great opportunity to have students highlight the results of their
research and interact with students from all over the world.

The objectives of the Symposium are to:
Provide a forum to exchange ideas and research results for PHD Students
Discuss the results of ongoing research
Provide opportunities for PhD students to establish scientific relationships
Compare PhD programs in various countries
Excite students about academia in this critical stage of their careers

Students will be recruited from Universities all over the United States. Attempts will be made to
have a diverse group of students selected for the fellowships (in terms of research topics,
regional representation, and cultural diversity). Special efforts will be made to attract talented
students from smaller and non-traditional universities, as well as students from
underrepresented groups.

The broader impacts of the proposed travel grant are that it will provide graduate students an
opportunity to exchange ideas and research results with PhD students from all over the world.
This experience will help excite students about civil engineering and academia at this very
critical stage in their careers.